Travel Support for the 43rd Annual International Conference on Parallel Processing (ICPP-2014)

Travel Support for International Conference on Parallel Processing (ICPP-2014)

This project is to request National Science Foundation to provide $10K for travel support for graduate students to attend the 43rd Conference on Parallel Processing to be held in Minneapolis, Minnesota from September 9th to 12th. The 43rd ICPP conference, which is a premier conference in parallel and distributed systems. A committee for elect travel awardees will be setup. The first priority will give to students who are from under-represented minority and female. The second priority will be given to those who normally could not attend the conference. Besides technical paper presentations, the venue offers a wide range of technical activities including panels, industry presentations, posters, demos, and keynote talks. Attending such high-caliber technical venues is extremely valuable for future researchers. This award enables the supported attendees to be exposed to the state-of-the-art research in the field, to have the opportunity to interact with peer graduate students, researchers and experts from all over the world, to further gain knowledge that is likely to shape the future of the field (e.g., in terms of technology, standards, etc).